IUCRC Self Sufficient Partnership for Research in the Center for NDE

This supplement funds the first year of a three-year continuing award under the "Self-Sufficient Partnership for Research Program" for the Industry/University Cooperative Research Center for Nondestructive Evaluation at Iowa State University. The Center has met all the requirements for this program. The Program Manager recommends that Iowa State University be awarded $35,000 for the first year of a three-year continuing award.